Theoretical Studies of Nucleon Structure and Cosmic Dark Matter

Research will be carried out in theoretical physics to enhance our understanding of elementary particles and the cosmic dark matter problem. The hypothesis that the dark matter is a sea of ghostly elementary particles will be studied. Dark matter is the gravitationally dominant component of the universe, so it plays a key role in modern ideas about the origin of the structure we see in it. It appears quite plausible that this dark matter is a particle sea left over by the Big Bang, hence the importance for both particle physics and cosmology to further our understanding of the nature and the role of the dark matter.